Polysilanes with Side Functional Groups

High-molecular weight polysilanes with side functional groups will be prepared and characterized. Polysilanes are new materials that show strong electron delocalization in the main chain. They resemble polyenes, but are more stable and can be prepared as soluble high polymers. In addition to alkyl-and aryl-substituted polysilanes, only a trimethylsilyl derivative is known. Polymers with new properties could be prepared by the introduction of various functional groups to polysilanes. The principal investigator has developed a sonochemical synthesis of high-molecular-weight polysilanes with monomodal molecular weight distribution and low polydispersity, and a rapid and quantitative dearylation of phenylsubstituted disilanes with trifluoromethanesulfonic acid. Triflated silanes react rapidly with different nucleophiles. This technique opens new synthetic avenues to high-molecular-weight polysilanes with side functional groups, such as alkoxy and amino substituents which contain mesogenic groups, electron-donating and withdrawing groups, or hydrophilic groups. Preliminary experiments show efficient grafting of polytetrahydrofuran from triflated polysilanes. As typical vinyl monomers, substituted styrenes, vinyl ethers, and Nvinylcarbazole will be grafted on polysilanes. Cyclic ethers and iminoethers will be used as heterocyclic monomers. The preliminary characterization will involve studies of the influence of substitution on basic spectrosocipic properties, molecular-weight distributions, and thermal behavior. These polysilanes can find applications as more efficient photoresists, photoconductors, and nonlinear optical materials.